Open Science Computer Laboratory

This project establishes an Open Science Computer Laboratory to serve the core chemistry and physics courses at Mississippi Gulf Coast Community College. The Laboratory, equipped with networked IBM PS/2 computers, offers a four-level instructional program: computer simulation experiments; data analysis; data acquisition; and construction of a computer interface device. Through the Laboratory, the College will offer a 4-week summer course for area high school students exposing them to the material in level one and two of the physical science curriculum.